Multiply-Bonded Organosilicon Compounds

The Synthetic Organic Program will support the research of Dr. Robert West of the Department of Chemistry at the University of Wisconsin-Madison. Dr. West will continue his innovative studies of compounds compounds containing silicon, with a focus on compounds containing multiply-bonded silicon. The new types of multiply-bonded silicon compounds that will be synthesized and characterized include disilynes, silynes, silanamidides, silandiimines, sila(iso)nitriles and 1,2-disilabenzenes.